RUI: Trans-Domain Remanent Magnetization

Obslervations by paleomagnetists indicate that small multidomain grains play an important role in rock remanent magnetization. In contrast to this, there is presently no generally accepted theory of how small non-uniformly magnetized grains can acquire and retain a magnetization. The existence of local energy minimum (LEM) domain states, the high stability of LEM states, and the intrinsic magnetic moments of small multidomain grains, suggests a model of fine particle magnetization which may rectify this situation. A remanence dependence on these properties is called a "trans-domain" remanent magnetization. The PI will develop this model into a theory of fine particle remanent magnetization. This will be accomplished by the development of numerical models and placing the results of these computations within the framework of statistical mechanics. The theory of trans-domain remanent magnetization has the potential to explain the physical origin of a number of natural remanent magnetizations important to the field of paleomagnetism.